Conference on "Exhumation Processes: Normal Faulting Ductile Flow, and Erosion"

9628304 Brandon This actions provides partial support for a Penrose conference, "Exhumation Processes: normal faulting, Ductile flow, and Erosion" to be held in Crete, October 9-12, 1996. The conference will examine the timely subject of how exhumation processes operate to bring deep-seated rocks to the surface. Results are expected to review this subject and synthesize present knowledge in order to provide a focus for future research in the area.